Some Studies on Non-Uniformly Hyperbolic Attractors and The N-Body Problem

ABSTRACT DMS - 0204725. PI: Qiu-Dong Wang

This research proposal is mainly on the subject of non-uniformly
hyperbolic strange attractors. We propose to apply an abstract
setting we previously formulated and studied to rigorously prove
the existence of non-uniformly hyperbolic strange attractors
in certain systems of ordinary differential equations, including a modified
system of van der Pol and certain periodically excited systems experiencing
Hopf bifurcations. We also propose to analytically establish the fact that
non-uniformly hyperbolic strange attractors naturally arise when
an asymptotically stable periodic solution of a given system
of ordinary differential equations is periodically excited by generic
external forcing. These non-uniformly hyperbolic strange attractors have
properties that include most of standard mathematical notions associated
with chaos: positive Liapunov exponents, positive entropy, SRB measure,
exponential decay of correlation, nice symbolic coding of orbits etc.
We also propose to study the geometric structure of the integral manifold
of the spatial four-body problem.

This research proposal is mainly on the subject of non-uniformly hyperbolic
strange attractors. In general an attractor is a state to which a system will
eventually evolve. One of the most important way of studying systems in nature
is to first model then study them as solutions of certain differential
equations. We propose to apply a theory we previously developed
to prove the existence of a class of strange attractors in some systems of
differential equations arisen from various scientific disciplines including
in the studies of turbulence, fluid mechanics and plasma mechanics. The
attracting states we propose to study have very complicated dynamical
properties and sophisticated geometric structures. They were observed in
many numerical and laboratory experiments but their existence were rarely
established mathematically in the past. We also propose to study the geometric
structure of the integral manifold of the spatial four-body problem. This is a
long standing mathematical problem with potential applications on orbit design
for artificial celestial objects.